Mathematical Sciences: Innovative Finite Element Methods for Modeling Multiphase Contaminant Flows in Porous Media

9626179 Ewing The simulation of fluid flow in porous media related to groundwater modeling, subsurface transport of contaminants, and petroleum reservoir simulation requires the numerical approximation of large coupled systems of nonlinear time-dependent partial differential equations. The development of efficient numerical techniques for the large-scale simulation is extremely important in understanding these porous media flows. Due to wave-like or traveling front problems and highly localized natures in the coupled differential systems and the enormous size of many reservoir simulation problems, an important goal of efficient numerical modeling is the ability to effectively model these effects and the utilization of new supercomputer architectures. This project will concentrate on the development of finite element methods, computational codes, and supporting mathematical analysis for underground contamination flows. The numerical methods will be designed to simulate such complex features of the flows as shock-line saturation fronts and steep composition gradients, to produce accurate fluid velocities, to conserve mass locally, and to take advantage of new parallel supercomputers. Self-adaptive local grid- refinement methods and efficient implementation techniques for iterative solution of large linear systems are also studied. A three-year program of research is proposed into the development of accurate numerical techniques, efficient computational codes, and supporting mathematical analysis for modeling of multiphase flows and transport in groundwater hydrology which has applications in design of remediation and cleanup technologies. The development of improved methods for assessing groundwater contamination by hazardous wastes has become increasingly important. Indeed, groundwater supplies are increasingly threatened by organic, inorganic, and radioactive contaminants introduced into the environment by improper disposal or acci dental release. Estimates of remediation costs at U.S. government sites alone range into the hundreds of billions of dollars. Protecting the quality of groundwater supplies is a grand challenge problem of broad societal importance. There are also a number of industrial applications of the proposed research. The production and management of oil reservoirs are governed by equations and technologies that are nearly identical to those exploited in groundwater hydrology. The manufacture of high quality fiber reinforced plastic composites for automotive and aerospace applications is controlled by technology similar to that studied in this project. Design of semiconductors uses equations very analogous to those for groundwater transport. In these areas, technology transfer can be easily carried out: use of the codes developed for, industrial collaboration with the researchers of, and employment of students trained on this project.